Conference on Approximation and Complexity in Numerical Opt imization: Continous and Discrete Problems

This award supports a conference on
``Approximation and Complexity in Numerical Optimization:
Continuous and Discrete Problems'' to be held at the
Center for Applied Optimization, University of Florida,
February 28 - March 2, 1999. The conference will be concerned
with new algorithmic approaches, applications and software for
computationally difficult discrete and continuous optimization problems.

The major objective of the meeting is to provide a unique opportunity
for researchers working on theory, approximation algorithms, and
applications of discrete and non-convex programming, to discuss recent
research advances, to establish a foundation for joint research cooperation,
and to stimulate future interdisciplinary research.